Nuclear Reaction Dynamics

The PI's propose to conduct research on theoretical
heavy ion physics. The emphasis of this proposal is reaction dynamics over a
range of beam energies, from intermediate ( > 10 AMeV) to ultra-relativistic
(100 AGeV). Particular attention is paid to theory that is relevant to exper-
iments at the NSCL, GSI, CERN-SPS, and RHIC. The co-PIs have a long
tradition of collaborating with experimental groups in the US and abroad,
and they will continue to do so.
Thematically, themain emphasis lies on the investigation of correlations
between emitted particles, as well as phase transitions in heavy ion reactions
at different energy regimes. An important component of this proposal is the
theoretical support for the future Rare Isotope Accelerator (RIA) program
and its connection to nuclear astrophysics. Since the RIA construction was
identifed as the highest priority in theNSAC long-range plan, it is impera-
tive to deepen the theoretical underpinning for this feld.
The proposed topics are of present interest to the investigators in light
of the present experimental situation. A traditional strength of the investi-
gators is the ability to adapt their research directions to new experimental
fndings, and it can be predicted that this will continue during the proposed
grant period.
Almost all of the funds proposed will be spent for salaries for two gradu-
ate students and one post-doctoral associate. In year one, there is a request
for some computer support. This is justifed, because almost all proposed
research makes extensive use of numerical work.